General Mathematics Curriculum Project

The aim of this project is to reform the General Education Mathematics course, MAT 112, at Prince George's Community College with the introduction of more computer technology, the addition of more links to other disciplines, and the development of capstone projects. Interdisciplinary faculty teams will design problem sets that deal with statistics, the mathematics of finance, probability, and linear algebra. These problem sets will require students to identify and access data sets, frequently using the Internet as a resource, and then to analyze these real-world data sets using computer technology. The capstone projects at the end of the semester will require student teams to access data sets from broad disciplinary areas, determine the questions that can be answered from the data, and then to analyze it mathematically. An advisory board that includes faculty from other two- and four-year institutions, as well as external resource consultants, will provide guidance for this project.